A National Workshop on Computer-Based Laboratories for Introductory Students in Chemistry and Physics

A twelve day summer workshop for chemistry and physics faculty is being offered in computer-based laboratory instruction for introductory students. The faculty are being recruited nationwide. The workshop is: demonstrating new ways of teaching introductory students to use personal computers as a laboratory tool to log, manipulate, analyze, interpret, and present experimental data; exploring the novel experiments being used in the interdisciplinary science course, "Matter and Motion;" exploring laboratory as a means of integrating physics, chemistry and introductory calculus at the college level; and expanding the network of chemistry and physics faculty who are engaged in developing computer-based laboratory work in chemistry and physics.